SBIR Phase I: New Approaches for Including Renewable Resource Materials in Epoxy Resin Products to Reduce Styrene Emissions and Provide Recycling Capability

This Small Business Innovation Research (SBIR) Phase I project to develop a variety of thermoset plastics incorporating biodegradable polymer components as replacement for environmentally undesirable styrene reactants.

The commercial application of this project will be in the area of renewable resource based biodegradable polymers for broad industrial use.